Fourth International Workshop on Objective Prior Methodology

The funding is for the "Fourth International Workshop on Objective Prior Methodology," to be held June 15-20, 2003, in Aussois, France. The principal objectives of this meeting are to facilitate the exchange of recent research developments in objective prior methodology, to provide opportunities for new researchers, and to establish new collaborations which will channel efforts into pending problems and open new directions for investigation. An important consequence of this meeting will be to further crystallize objective prior methodology as an established area for statistical research. Most of the funding will go towards expenses of new researchers. The meeting will be organized to actively encourage participation of new researchers and underrepresented groups, and to provide opportunities for the initiation of international collaborations.